U.S.-China Cooperative Research: Reliability of Microelectronic Packaging and Interconnects

9411390 Liu This award supports a research planning visit by Dr. S. Liu, Florida Institute of Technology, and Dr. W. Yang, Tsinghua University, China to develop collaborative research on the reliability of microelectronic packaging and interconnects. VLSI semiconductor devices continue to utilize larger chips (dies) in progressively smaller packages than previously produced. From the material and structural point of view, a microelectronic package is a highly complicated composite microlaminate, consisting of silicon chips (dies) and die coatings, various passivation layers, encapsulant such as mold compound, die attach, leadframe, and various material interfaces. Various failure modes can occur during fabrication, testing, storage, and operation. For instance, typical failure modes in plastic packaging include metal line smearing, metal and passivation cracking, die cracking, and various material interfacial delaminations, which are mainly due to elevated temperatures and high moisture concentrations. The reliability of a semiconductor device is closely related to the mechanical properties of its constituent materials and its associated interfaces. Therefore, the first part of the proposed research is to conduct experimental and analytical studies on the measurement of the material response and the interfacial strength for various bi- material combinations. The second part of the present investigation involves damage tolerance analysis of packaging devices based on analytical/numerical modeling. The predicted results will be compared with data obtained form experimental test chips.